Doctoral Dissertation Research: Local Media Coverage of Congress and Its Members

9409412 Paletz This Doctoral dissertation Research Project determines the relationships that exist between members of Congress and local media and their effects on local media coverage. Content analysis of the stories pertaining to Congress or its members in three types of local media across a variety of media markets during election and nonelection years will show what is reported and how it is framed. Interviews wil congressional press secretaries and local reporters and editors will reveal the member-media interaction, which in conjunction with news values and news gathering processes will be used to explain the content of local media coverage of Congress. By allowing comparison of coverage across media types and markets and between non election and election-year coverage, this project is designed to fill major gaps in the literature on Congress and the media. The findings will have significant implications for political participation and political communication, showing whether or not local media provide the kind of information that citizens need to hold their members of Congress accountable and to participate effectively in democracy and the circumstances in which local media are an effective means for members of Congress to communicate with their constituents.